Partial Differential Equations and Applications

PI: Alexandrou Himonas, University of Notre Dame
DMS-0245417

ABSTRACT. This conference on Partial Differential Equations and Applications to be held at the University of Notre Dame in August 2003
will bring together experts from nonlinear elliptic, parabolic, and evolution equations and their applications, numerical methods in electromagnetics and acoustics, and reaction-diffusion equations in biological modeling, to share their research results, ideas, and insight regarding future directions. The conference is of interdisciplinary character with strong connections to sciences and engineering. There is a multitude of challenging, open problems
where progress could be of great interest to a wider scientific community. Such progress requires expert knowledge of advanced and technically difficult mathematics as well as an understanding of current problems and methods of physics, chemistry, biology, and engineering. Young researchers and graduate students, in particular women and minorities, are especially invited to participate in this conference and interact with specialists in diverse areas, thus helping them enhance their scientific development in mathematics the sciences and engineering.